U.S.-France Cooperative Research: Studies on the Oligosaccharides of HIV Glycoproteins

This award will support collaborative research between Prof. Herbert Blough of the University of Pennsylvania, and Prof. Luc Montagnier of the Institut Pasteur, Paris, in a study of the HIV virus. The objective of this work is to characterize the oligosaccharides of the major glycoproteins of this virus, and to see what differences exist in these molecules among the various HIV virus strains. The oligosaccharides will be isolated, purified and analyzed, using specific enzymes to hydrolyze the sugar moieties, as well as chromatography and nuclear magnetic resonances. The French collaborators have unique skills in the biology, genetics, and clinical trials for HIV, and the U.S. investigator is an expert in membrane biochemistry and antivirals. In this collaboration, the Institut Pasteur will provide large amounts of purified HIV glycoproteins for analysis. The characterization of molecular weight and composition will be done in France; biological sequencing will be done in the U.S. This research could lead to an increased understanding of phenomena that occur at the surface of HIV cells, and therefore of the virus-host interaction. Results could have a significant impact on limiting the spread of AIDS.